Study of Acceptance of National Council of Teachers Standards for School Mathematics

The Mathematical Sciences Education Board (MSEB) of the National Research Council is engaged in a multi-year joint project with the National Council of Teachers of Mathematics (NCTM) to provide states and local school districts with a clear statement of what consititutes excellence in school mathematics. Such standards could be used for evaluating current programs and determining how they can be improved. This project would engage many different networks in analyzing both the NCTM standards and the new MSEB framework that is being developed to set future direction for mathematics education. Representatives from school boards, state agencies, school administrators, and parent groups will be asked to react to the proposed recommendations. This activity will provide feedback to NCTM on the appropriateness and intelligibility of the standards as drafted and allow the mathematics education community to focus on possible impediments to acceptance of higher standards and more dramatic change.